Sintering of High Tc Superconductors for Preferred Orienta- tion

This project is an investigation of sintering of high Tc superconductors under the influence of an electric current in order to induce texture. The recently discovered high Tc superconductors, which have an orthorhombically distorted perovskite structure, exhibit anisotropic superconductivity. Critical current densities in the basal plane of the lattice are much higher than in the c- direction perpendicular to the basal plane. In order to maximize the critical current density of polycrystalline films made from these materials it will be necessary to induce texture effects in the materials such that preferential alignment of the grains occurs.